Collaborative Research on the Northeast Water Polynya: The Circulation from Current Meter Moorings and ADCP

This proposal is part of an integrated scientific investigation to study the properties of the Arctic ocean, atmosphere, sea-ice and biology in the Northeast Water (NEW) Polynya, which occurs near northeastern Greenland, in order to gain an integrated understanding of Arctic shelf-slope processes. This element of the NEW program will study the physical oceanography and circulation of the NEW polynya using closely-spaced CTD stations, Acoustic Doppler Current Profiler and current meter moorings. Current meter moorings will be used during the initial four week research program and then redeployed for year-long measurements. The moorings will be recovered during the second field research period. The data from these instruments will be used to determine whether Atlantic Intermediate Water arrives in the polynya via the polynya trough system to supply heat to melt ice and to assess the importance of the flow fields to biological productivity.